Genetic and Biochemical Studies of the Tryptophan Operon

A major effort will be made to understand the molecular details of trp repressor interaction with, and regulation of, the operators of the three operons this repressor controls. Structure-function studies will be performed using mutant repressors. These studies should elucidate the structural requirements of the tryptophan binding site, the process of dimer formation and the properties of heterodimers, the role of the amino terminal arm, and the relationship between the amino acid sequence of helix E, the DNA-recognition sequence of the repressor, and recognized base pairs in the three operators. In addition, second site reversion studies will be carried out with various mutant classes to analyze compensating interactions within the repressor and functional alterations in different regions of the repressor. Physiological studies will be continued in an effort to better understand how trp gene regulation occurs in growing cells. Studies on the evolution of tryptophan synthetase will continue and will focus on the gene rearrangement and gene fusion that occurred in the evolution of the single tryptophan synthetase polypeptide of yeast and Neurospora from the separate polypeptides of bacteria.